Innovation: An Exhibit to Foster Understanding of and Invite Participation in the Process of Innovation

9705633 Betthauser The Tech Museum of Innovation will fabricate, install, and evaluate a 6,800 square foot exhibition. Through approximately 66 interactive exhibit experiences, visitors will discover how basic science is applied in practical, real-life circumstances for the design and engineering of advanced technologies. An array of educational programs has been designed to appeal to a diverse audience with a variety of interests and learning styles. Demonstrations, hands-on activities, and interviews (online and/or multimedia) with nationally recognized innovators will highlight innovation as a complex process involving careful preparation, use of the scientific method, the ability to problem solve and make connections, and luck.